US-India Workshop: New Directions in the Study of the Interaction of Energetic Photons with Matter, North Bengal, India, Fall 2003

0242942
Pratt

Description: This award supports the participation of ten US scientists at a US-India workshop in radiation physics entitled New Directions in the Study of the Interaction of Energetic Photons with Matter. The organizers, Richard Pratt, University of Pittsburgh and Swapan Kumar Sen Gupta, North Bengal University, plan to convene the workshop at North Bengal in October 2003. The primary objective is to identify and initiate joint activities, responding to the opportunities of the new synchrotron facilities and other technologies, which are of fundamental interest and importance. The workshop will consider the processes of photoabsorption, photon scattering, x-ray and pair production, from both theoretical and experimental perspectives, and in each case consider which new and fundamental insights can be anticipated. This activity is cofunded with the NSF/MPS Division of Physics.